NSF Young Investigator Award

9357937 GREEN This award provides support to Dr. Donald Green under the National Science Foundation's Young Investigator Awards program. The objective of this program is to recognize outstanding young faculty in science and engineering, to enhance the academic career of recent PhD recipients by providing flexible support for research and educational activities, and to foster contact and cooperation between academia, industry, and institutions that support research and education. Dr. Green has already made significant research contributions to the field of political science, and he has the potential to become a leader in academic research and education. This award will allow the investigator to pursue his research interests in the social psychology of intergroup conflict. Specifically, he proposes to develop a statistical model of the incidence of overt manifestations of intolerance, or "bias crime." He will examine the over-time dynamics of bias incidents as well as the cross-sectional relationship between incidents and economic performance, demographic composition, intra-and interracial crime rates, and survey measures of attitudinal intolerance. This research has important theoretical and policy implications. Dr. Green also plans to continue his work on campaign finance, party affiliation, the consequences of measurement error in survey data, and the role of tangible self-interest in democratic politics. This work uses survey and experimental data to formulate a theory about the conditions under which self-interest manifests itself in political attitudes and behavior. ***